Optimizing MPI Programs through Compiled Communication

The standardization of Message Passing Interface (MPI) has resulted in a
large number of applications being developed using MPI. The current MPI
standard hides network details and provides a simple interface for communication. While these features ease the task of parallel programming,
they limit communication optimization opportunities. Specifically,
with the current MPI, communication optimizations can be performed
either by the compiler or in the library implementation. In both cases,
optimizations are limited. Optimizations performed by the compiler
must be architecture independent since the library hides architectural
details from the compiler. Optimizations in the library implementation
are usually architecture dependent. However, such optimizations can
only be applied to each individual routine.

In this research, we propose to optimize MPI programs through compiled
communication. By simultaneously using the application communication
information and the system architecture information to perform
communication optimizations, compiled communication overcomes the
limitations in the traditional communication system. We will accomplish the
proposed work by developing systems that allow programmers
to write regular portable MPI programs and enjoy the high communication
performance achieved through compiled communication. The systems
can also be used to optimize existing MPI programs. We will concentrate
on two related parts of this research: extending the MPI standard by
adding new routines to support compiled communication, and developing a
restructuring compiler that analyzes an MPI program and transforms the
program into one that employs the compiled communication technique.
We will also develop techniques for applying compiled communication to
irregular problems and investigate the interaction between the library
and the compiler support for compiled communication.